Behavior and Control of Molten Cladding - Modeling of Joint Formation in Aluminum Brazing

This research project will investigate joint formation and material behavior during the liquid metal phase of controlled atmosphere brazing of aluminum alloys. The investigation will be experimental, analytical and numerical. It will seek to: (1) model the topology of the joint shape; (2) quantify the influence of micro grooves and surface roughness on the cladding flow under actual brazing conditions; and (3) establish a new method for control of molten cladding flow which will be sufficiently robust to be applied in industry.

The extensive experimental study will include the complex plate-fin heat exchanger samples used in the automotive, aircraft, cryogenics and air-conditioning/refrigeration industries. In this study, in-situ monitoring of the molten metal phase of the process will be achieved using high-speed digital camera imaging during the computer guided thermal regimes in a special transparent vacuum furnace with controlled atmosphere capabilities. The experimental conditions will be identical to the conditions in an actual brazing process. The objective of the experimental study is to clearly visualize and understand the molten metal flow and joint shape formation. Theoretical analysis will utilize surface tension theory to define an equilibrium molten metal membrane profile at the onset of solidification. Numerical analysis will be performed using a parametric finite element method.